Purchase of X-Ray Single-Crystal Diffractometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at Syracuse University acquire a modern single crystal X-ray diffraction system. This equipment will enhance research in a number of areas including the following: (1)metal oxide clusters and solid, (2) boron hydride clusters, (3) metal-thiolate chemistry, (4) alkaline,alkaline-earth and lanthanide chemistry, and (5) the development of technetium and rhenium radiopharmaceuticals. The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboping molecules.